Acquisition of Instruments for a Nuclear Magnetic Resonance Analytical Lab

This award from the Academic Research Infrastructure Program will help the Department of Chemistry at Columbia University acquire upgrades for a 300 MHz and a 400 MHz NMR Spectrometer. The research activity to be supported includes: designing, synthesizing, and analyzing the reactivities of synthetic analogues of such molecules; synthesizing inorganic, organic, and organometallic materials whose structures and properties are novel, and analyzing new photochemical and metal-mediated processes. Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.